Astrophysics of Single and Binary Star Formation

The dynamical determination of the masses of young stars and brown dwarfs will be
continued through an extensive observational program using a variety of tools and
techniques. The work is motivated by substantial uncertainties in theoretical mass
relations for substellar masses, the lack of empirical calibrations (temperature,
luminosity, etc.) for very low mass/young stars, and uncertainties the distribution of mass
ratios in clusters. The goal is to obtain dynamical masses to within 10% for stars of mass
1 to 0.5 that of the Sun, and to within 20% for those of even less mass. Four specific
projects will be undertaken: 1) The orbits of young visual binaries, including low mass
pre-main sequence stars, will be improved using Keck and Gemini Observatory laserguide
star Adaptive Optics systems and Hubble Space telescope Fine Guidance Sensor
observations. 2) The mass ratio distribution in the Hyades will be explored using the
Infrared Telescope Facility and the Cryogenic Echelle Spectrograph to observe
spectroscopic binaries. 3) Masses of two pre-main sequence stars will be improved by
observing the rotation of circumstellar disks in the 13CO line where the ambient cloud
brightness should be lower (extended emission from the cloud was a source of
uncertainty in previous 12CO measurements). 4) The dynamical masses of brown dwarfs
will be determined from observations of brown dwarf binaries, which will be used to test
theoretical mass-luminosity relations.
This work will directly support the training of graduate students in contemporary
instrumentation and collaborative investigations. Both students in the NSF supported
Research Experiences for Undergraduates program at Stony Brook and Stony Brook
undergraduates will also participate through independent research projects. Results of the
work will be disseminated to the public through an ongoing monthly "Open Nights in
Astronomy" program and talks to local amateur astronomy groups.